Spectroscopic Analysis of Objects with non-Spherical Envelopes

AST-0507328
Desmond Hillier
University of Pittsburgh
Spectroscopic Analysis of Objects with non-Spherical Envelopes
ABSTRACT
The development of a sophisticated multi-dimensional non-local thermodynamic equilibrium code
for the transfer of radiation through objects where geometry is important will be continued. Such
objects (binary stars, novae, supernovae, Be stars, T Tauri stars, etc.) have been extensively
observed from both the ground and space and this code will provide an important diagnostic tool of
abundances and physical parameters. Towards this end, several activities are planned to further
improve and generalize the program: 1) a refinement of the current numerical techniques for greater
speed and accuracy; 2) the implementation of the code in a parallel environment (exploring various
possible parallelization routes); and 3) applying the code to real astrophysical objects (specifically
Be stars, rapidly rotating hot stars, and luminous blue variables) as a method of testing as well as
extracting useful scientific results.
The training and support for a postdoctoral fellow in modeling radiative transfer is included. This is
an area with few students despite its importance throughout astronomy.
The final code will be released to the public.